Gromov-Witten invariants and mirror symmetry

Abstract

Award: DMS-1105871
Principal Investigator: Mark Gross

The principal investigator plans to study the geometry of mirror
symmetry for Calabi-Yau manifolds. This will be done from the
perspective of a program developed jointly with B. Siebert, which
"tropicalizes" Calabi-Yau manifolds, using an algebro-geometric
version of the Strominger-Yau-Zaslow conjecture. In particular,
the principal investigator proposes to resolve a number of the
remaining key steps of this program; these steps should be the
component pieces of a complete conceptual proof of mirror
symmetry at genus zero. These steps include a general gluing
formula for the theory of logarithmic Gromov-Witten invariants
and a generalization of the tropical vertex of the PI,
Pandharipande and Siebert to all dimensions. In addition, the
program with Siebert has led to the construction of canonical
theta functions for lines bundles on (degenerating families) of
Calabi-Yau manifolds. The existence of such theta functions is
expected to have various applications, such as geometric
compactifications of the moduli space of K3 surfaces (being
pursued with P. Hacking and S. Keel) and a tropical approach to
homological mirror symmetry (being pursued with Siebert and
M. Abouzaid).

The work described in this proposal lies at the intersection of
string theory and geometry. String theory replaces the
traditional notion of the point particle with a small loop of
string, moving through space-time. To make string theory
compatible with quantum mechanics, space-time must be
ten-dimensional. Since space-time appears four-dimensional, one
expects six of these dimensions to be a very small "curled up"
geometric object. These geometric objects are called Calabi-Yau
manifolds. In the early 1990s, string theorists proposed a
remarkable association between completely different Calabi-Yau
manifolds: certain calculations extremely difficult to perform on
one Calabi-Yau manifold could be completed by performing
completely different, and much easier, calculations on a
different Calabi-Yau manifold. This discovery was known as mirror
symmetry. Since this time, many geometers have been trying to
understand the mathematics behind this miraculous
observation. New insights and explanations for this phenomenon
are developing rapidly, and these insights are leading to new
approaches to old problems in algebraic geometry. The proposed
work aims to both further understanding of mirror symmetry and
apply this understanding to produce new developments in algebraic
geometry.